Enhancing STEM Education in North Mississippi: Providing Partnerships and Support for Rural Educators

This Noyce Track 1 project aims to serve the national need of enhancing STEM education in rural areas, targeting the shortage of qualified STEM educators. Specifically, this project will support ten new certified STEM educators in chemistry, mathematics, and physics by providing generous scholarships, specialized training, opportunities to conduct research with quality university faculty, and continued support while in the classroom. The proposed project components will enable high-achieving prospective teachers to become secondary STEM educators with extensive expertise in active learning instruction, interdisciplinary thinking, and artificial intelligence (AI).

This project at Mississippi State University includes partnerships with the Louisville Municipal School District. Project goals include the recruitment, training, and placement of highly qualified teachers in high-need schools in Northern Mississippi, with emphasis on majors in chemistry, mathematics, and physics. Over the next five years, this project seeks to produce up to ten new STEM teachers in these STEM subjects, drawn from qualified undergraduates at Mississippi State University. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) Do you feel confident in your abilities to teach your STEM subject(s)?, and (b) Do you think the program adequately prepared you for the challenges you face as a rural educator? The results of this project will be disseminated to help advance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.